Using a Research-based Approach to Reform Upper-division Quantum I and E&M I

Physics (13)

This project develops a suite of curricular materials for upper-division Quantum I and E&M I courses, assessment instruments to evaluate the impact of the educational reforms, and instructional resources to assist in the use of these materials by faculty not involved in the course transformation. In addition, the project conducts preliminary research studies on student learning in upper division physics courses and faculty use of these new, research-based curricula and practices. This project improves the curricula and practices within these canonical courses in the physics major, without requiring major changes to the structural features of the major or course sequence. All materials are available freely online and disseminated nationally. The proposed program of course transformation builds from existing research on students' understanding of these areas, extends preliminary work conducted elsewhere, and leverages the significant resources and experience at the University of Colorado at Boulder in reforming physics courses.